Dissertation Research: Causes of Geographic Variation in Flower Size in Nemophila menziesii H. & A. (Hydrophyllaceae)

This study is an investigation of the potential biological processes which may maintain differences in the sizes of flowers among populations of an annual wildflower native to California. The species under study, Nemophila menziesii, exhibits extensive variation in flower size among populations, and shows a striking pattern in which those populations native to the interior mountain ranges surrounding California's central valley are the largest flowered; populations on the cost are intermediate, and those from southern California produce flowers. Essentially, this study seeks to determine why this pattern exists. The study is evaluating whether 1) deterministic, or 2) random biological processes (or both) are important in maintaining these population differences in flower size, and 3) whether or not the variation in flower size among populations is adaptive. Using a large data set collected from herbarium specimens, this study directly tests for geographic patterns in flower size that would be expected to be generated by natural selection, and patterns that would be expected if random processes were more important in generating the population differences in flower size. To augment the study of natural selection using herbarium specimens, reproductive fitness of plants which differ in flower size are being monitored to determine whether or not natural selection for flower size currently occurs. This possibility of differences in flower size being due to inbreeding is being tested by determining the level of inbreeding (using electrophoresis) in two populations which differ in the average size of their flowers, and also by experimentally determining the effects of inbreeding by comparing plants from outcrossed and inbred matings in these same two populations.